A Comparison of Vertical Motions Obtained from the Flatland ST Radar and from a Generalized Omega Equation

The objective of this research is a comparison between calculated and measured vertical motions using the Flatland (ST) radar and a generalized omega equation. The radar site near Champaign, Illinois, was selected to avoid orgraphically induced vertical motions which compromise other existing sites in the U.S. Various statistical methods will be employed using data from a single year. The results should improve our knowledge of these new radars, particularly their suitability for measuring synoptic scale vertical motion.